The Role of Media in Supporting Free-Choice Science Learning

Building upon extensive prior work, the Institute of Learning Innovation is developing and implementing a conference to bring together media professionals, researchers, and policymakers that work in ISE to reflect upon recent research and develop frameworks for future practice and evaluation. Various media-related groups (print, broadcast, electronic gaming, etc,) usually have professional conferences in isolation from each other with little sharing of information and research findings. Despite the rapid blurring of boundaries between various media types in the marketplace, researchers and practitioners remain within traditional silos. This conference will bring together 80 media practitioners and researchers for a two-day national conference in order to consolidate and synthesize the research-based theories presented in a pre-conference publication. A series of 3 post-web conferences will build on the momentum generated during the initial conference and generate broader participation within the science learning media community. Rockman et al will evaluate the conference and post conference web community.